Graduate Traineeships in Quantitative Contaminant Hydrogeology

Fundamental and applied problems associated with the contamination of the subsurface environment are receiving attention at local, national, and international levels. Groundwater contamination is clearly an urgent technical issue in our society. The University of Virginia has taken an interdisciplinary approach to the study of quantitative contaminant hydrogeology that places it in a unique position of national prominence in the field. With additional support for graduate students, the ongoing research and teaching program should allow them to craft a cohesive program that will provide the basis for understanding the fundamental technical issues of groundwater contamination and produce competent professionals who can address the details of this complex interdisciplinary problem from a variety of perspectives. Collaboration across departments is generating new research funds, additional faculty members, and new space; the University of Virginia is primed to expand its role in the training of critically needed technical professionals. This interdisciplinary academic program, encompassing hydrogeology, geochemistry, microbial ecology, chemical engineering, and civil engineering, shall evolve into a national resource by producing outstanding graduates to fill positions at other universities, national research facilities, federal agencies, and industry, and to train them to contribute to solving our Nation's problems in contaminant hydrogeology.